Collaborative Research: Community Disassembly and Ecosystem Function: Pollination Services Across Agro-natural Landscapes

Human domination of the earth has led to rapid changes in ecosystem
functioning, and has degraded many functions that are essential to human
survival, such as climate regulation, water purification and crop
pollination. Research on ecosystem function has traditionally been done at
small spatial scales using artificially-assembled communities. We therefore
lack a full understanding of how human activities influence function in
real landscapes where the changes are occurring. The proposed study will
investigate a critical ecological function, pollination, in the context of
human-induced land use change. The researchers will examine pollination
provided to native plant species growing in natural habitat fragments, and
to crop plants in agricultural areas. Both systems will be considered
across a gradient of land use intensity, i.e., with study sites surrounded
to varying extents by agriculture and urban/suburban development. The
following questions will be investigated: (1) How do pollinator communities
change (in terms of number of species, community composition, abundance and
biomass) with increasing land use intensity? (2) What are the functional
consequences of pollinator community change for native plant and crop
pollination? (3) What environmental factors most strongly influence
pollination function?

The work will benefit society at large, because as human populations
grow, it becomes increasingly important to maintain ecosystem services that
prevent shortages of water, energy and food. Crop pollination provided by
wild species, which depend on natural habitats, can provide economic
incentives for conserving these habitats. The investigators will transmit
the results of their study to land owners and land managers through
workshops, manuals, the media, and collaborative projects with conservation
and farming organizations. The broader impacts of this work will also
include promoting teaching, training and learning by providing
opportunities for independent and collaborative undergraduate projects,
focusing on women from Bryn Mawr College.